Presidential Young Investigators Award: Electro-optic Anisotropic Waveguides with Optical Nonlinearities.

The plan of the PI is to establish a research program in the analysis, design, and experimental evaluation of electro-optic anisotropic (biaxial) waveguide devices, such as laser modulators. Specific aspects of this program will be 1) developing analysis - techniques based on derived theory of the PI, 2) designing new devices using these techniques, and 3) fabricating and characterizing these devices. Previous work of the PI, based on exact electromagnetic theory with no simplifying assumptions, provides new insight into the nature of propagating hybrid modes in these structures. This theory will be extended to quantify analytically how the electro-optic effect can be utilized to control cutoff and waveguiding as a function of applied voltage and wavelength. Furthermore, the knowledge gained on biaxial waveguides will be applied to optimize phase- matching conditions and coherence lengths for efficient second harmonic generation in waveguides. LiNbO3 and GaAs are commonly used materials which possess both electro-optic (induced anisotropy) and second harmonic generation properties. This research will result in analysis techniques, not presently available, to design and evaluate practical waveguides with anisotropy and second order optical effects at different voltage levels, applied voltage directions, and wavelengths. The experimental program will be initiated with a look at GaAs waveguides.